2002 Tribology Gordon Conference, August 4-9, 2002, Bristol, Rhode Island

0212146
Page
Partial support is provided for the 2002 biannual Gordon Research Conference on Ttibology. The conference will be held August 4-9 at Roger Williams University in Bristol, Rhode Islans. Session topics are focused on a general physics theme of "paths of least resistance". Topics include friction, lubrication and wear mechanisms, as well as the role of surface science and advanced modelling. The Gordon Conference format will assure that cutting edge research is discussed extensively in an informal atmosphere. NSF support will be used primarily to support the attendance of graduate students and junior researchers. The outcomes of the conference will be advances in basic science and follow-on impact on industrial applications in this important area as results transfer to industry.